Small Grant for Exploratory Research: Reactive Precipitationof Fine-Particle Silica in Two-Impinging-Jets Crystallizers

It is proposed to develop a new reactor, the so-called two- impinging-jets crystallizer. By impinging two streams in countercurrent in a small volume, a high level of mixing is achievable. The proposed reactor can be used to yield micrometer size crystals. Oscillatory motion of fluid particles near the jet interaction zone should insure good mixing and a controlled residence time. An experimental study will be undertaken to establish the feasibility and performance of this reactor. The turbulent mixing at the impinging zone will be hydrodynamically simulated by using a continuum approach. The proposed reactor has potential to improve the process of crystal growth for producing silica, various metal alkoxides sols, pharmaceutical and photographic materials.